RIA: High Performance Input/Output System for Databases

Recent trends in the relative improvements in speeds between the Central Processing Unit (CPU) and Input/Output (I/O system components suggest that the I/O system could become a bottleneck in computer systems. If this happens, many applications could become so I/O-limited that increases in CPU speeds would no longer be helpful. High performance I/O systems are needed to address this imbalance. For many applications such as database systems, I/O threaten to be a bottleneck limiting performance. The proposed research will investigate two issues related to I/O performance databases. First, we will focus on developing and verifying algorithms that improve the efficiency of random small writes. This type of workload dominates many on-line transactions processing (OLTP) applications. Second, we will characterize I/O performance in very large databases and develop a data management model for improved I/O performance. Applications such as brokerage houses, retail chains and mail order houses are increasingly making use of very large databases for advanced OLTP applications. The research will be simulation based. Commercial I/O traces and I/O traces from VAX 8800 machines at the Florida International University will be used as workloads for the study.